Integrated Chemometrics Program for the Undergraduate Curriculum

Chemometrics has been defined as the field in which mathematical and statistical techniques are used to extract valuable, but often hidden, information from measurements. Its introduction into the undergraduate curriculum has been recommended by the American Chemical Society. The Chemistry Department at Colorado College is implementing the introduction of chemometrics into the undergraduate curriculum through the recent acquisition of a Fourier Transform Infrared Spectrometer with selected spectral libraries and an enhanced library search package attachments. In addition to the usual infrared spectroscopy acitivities, use of this system is providing students with experiences in fourier transforms and computerized spectral searches. The courses impacted include organic chemistry, quantitative analysis, advanced analytical topics, reaction mechanisms and syntheses, theoretical spectroscopy, and research participation.